Postdoctoral Research Fellowships in Chemistry

Dr. Theresa C. Kavanaugh has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Kavanaugh' doctoral degree was from MIT with Professor Robert Silbey. She intends to continue research with Dr. Richard Stratt at Brown. In his laboratory, she will learn about liquid structure and cultivate an understanding of semiconductor liquids. This will build on the knowledge she has gained on non-linear properties and prepare her for her long range career goals of understanding surface effects of semiconductor clusters through the use of theoretical studies. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.'s and attract them into meaningful careers in contemporary chemical resesearch and teaching.